Industry/University Cooperative Research Center for Optical Circuitry - Evaluator Support

This project funds a evaluation study of the university- industry interaction occurring in the University of Arizona's Industry/University Cooperative Research Center for Optical Circuitry. The evaluator performing the study is experienced and internationally renown. The Program Manager recommends the University of Arizona be awarded $24,000 for three years for this evaluation project.